Structure/function analysis of a bacterial protein kinase/ phosphatase

Ninfa 9318792 Nitrogen regulation of gene expression in bacteria is accomplished by the reversible phosphorylation of the transcription factor Nitrogen regulator I (NRA) which binds to specific DNA sequences and, when phosphorylated, activates transcription. The phosphorylation and dephosphorylation of NRA are catalyzed by the bifunctional protein kinase/phosphates Nitrogen regulator II (NRII). This project outlines experiments designed to elucidate the mechanisms of the kinase and phosphates activities of NRII and their control. NRA and NRII are related to a large number of bacterial regulatory proteins, known collectively as the two- component systems, that share a conserved mechanism of signal transduction involving protein phosphorylation and dephosphorylation. The information gained from the studies of NRII will increase our understanding of the related kinase/phosphates proteins. NRII has several well documented activities: The protein binds to ATP and catalyzes the phosphorylation group is then transferred to NRA in a reaction catalyzed by NRA. Finally, in the presence of another signal transduction protein known as PII, NRII catalyzes the dephosphorylation of the phosphorylated form of NRA. Dr. Ninfa plans to identify, by classical mutagenesis or oligonucleotide-directed site-specific mutagenesis, alternations of NRII that result in altered regulation of nitrogen-regulated genes in vivo. The altered NRII proteins will then be purified and the effect of the alterations on the known activities of NRII will be ascertained. In this way it is anticipated that the structural features of NRII required for each of the activities and their control can be elucidated. In addition, the roles of the kinase and phosphates activities of NRII in the control of nitrogen- regulated genes can be further delineated. Another approach that will be taken is to more completely characterize the structure and activities of wild-type NRII. For example, a potentially usef ul improvement in the assay for the phosphatase activity will be employed and the crystallization and structural analysis of NRII are planned. %%% Living organisms do not express all of the genes present in their DNA at all times; rather, various genes are expressed at certain times in a manner that is appropriate for the orderly development of the organism or for an effective response to a stressful situation. The turning on and off of genes is accomplished by molecular switches. The PI interested in how such molecular switches function, and is studying a model switch from bacteria. Bacteria respond to nitrogen starvation by turning on the expression of certain genes. The components of the switch required for this process have been identified. The most important switch component is a protein called Nitrogen Regulator II. This protein has been purified, and Dr. Ninfa is investigating its properties. In particular, he would like to know which parts of the NRII protein are responsible for interacting with NRA, another protein known as Nitrogen Regulator I, with PII, another protein. In order to obtain such information, will be subtly perturbed at known sites, and alterations in properties will be monitored. Most informative are those perturbations that affect only property of NRII, leaving the other properties intact. In this project, the effects of such subtle perturbations to NRII will be studied in great detail in order to increase our understanding of how this molecular switch works. ***